Mathematical Problems Inspired by String Theory

The investigator studies IIA and IIB superconformal field theories on
a Calabi-Yau variety in an attempt to give a rigorous mathematical
definition of the vertex algebra of the theories. This algebra is
expected to be a deformation of the cohomology of the chiral de Rham
complex constructed by Malikov, Schechtman and Vaintrob. The second
aim of the project is to extend the definition of IIA and IIB models
to some singular varieties. The most pressing question is to connect
two existing definitions of elliptic genus of singular varieties,
which is a generalization of cohomological McKay correspondence. The
third part of the project focuses on problems from number theory that
arise in connection with the concept of elliptic genus and are related
to products of Eisenstein series.

String theory in its various flavors is a leading candidate for the
``theory of everything'' in mathematical physics. Its development
has led to rapid growth in several areas of mathematics, in particular
algebraic geometry, which concerns itself with spaces of solutions of
polynomial equations. Unfortunately, there is still a lack of rigorous
understanding of some of the underlying rich mathematical structures,
which the project aims to rectify. Such mathematical understanding is
important, because it may be a necessity for future development of
string theory which in turn may yield a more coherent picture of the
basic processes and forces of our universe. A separate part of the
project deals with certain number-theoretical questions inspired
by string theory. These are related to long-standing mathematical
problems in the theory of elliptic curves. The theory of elliptic
curves is a crucial part of the proof of Fermat's Last Theorem and
has practical applications to cryptography.

This project is jointly funded by the Algebra, Number Theory, and
Combinatoric Program and the Topology and Geometric Analysis Program.